RUI - Combinatorial Methods in Representation Theory

The goal of this project is to use combinatorial methods
to solve problems in the field of matrix representations
of groups and algebras, and, conversely, to use representation
theory to produce new results in enumerative combinatorics.
A main focus of each project is to construct and understand
irreducible representations and characters. The algebraic
structures under investigation include symmetric groups and
Weyl groups, the finite general linear group and other finite
Chevalley groups, partition algebras, and Hecke algebras.
These structures often come as pairs acting on vector spaces
and commuting with each other; for example the symmetric group
and the partition algebra commute with each other on tensor
space and a Chevalley group and its Hecke algebra commute on
a flag variety. This duality allows us to bring known information
from one of the algebraic structures to bear on the study of
its partner. The combinatorial structures used here include
symmetric functions, partitions, tableaux, integer matrices,
and graphs. This project will engage undergraduate students
in all aspects of the research. Algebraic combinatorics is an
ideal way to introduce young mathematicians and scientists to
research, because it uses accessible combinatorial objects,
which can be created, analyzed, and manipulated by students
who do not have of a large amount of advanced training. At the
same time, these objects enhance the fundamental understanding
of important constructs from algebra, geometry, and topology.

The algebraic objects under investigation in this project
represent various kinds of symmetry. These include symmetries
of physical objects --- such as molecules, crystals, knots, or
tensegrities --- and symmetries of complicated systems, such as
physical models of energy transfer, large sets of ranked data,
or symmetry in the organization of digital image data.
Representation theory ``represents" these symmetries using
matrices (rectangular arrays of numbers ). In a given problem,
there are usually a large number of these matrices and they also
are usually large in dimension (size). A major goal of
combinatorial representation theory is to find ways to
simultaneously decompose these large matrices into their
constituent building blocks and then to analyze the building
blocks using concrete structures which can be manipulated by
hand and by computer. This is analogous to understanding a
complicated molecule by decomposing it into the various atoms
that make it up and then carefully analyzing those atoms.
Since the early 20th century, representation theory has held
a prominent role in theoretical mathematics. Furthermore, it
has had an enormous impact on physical chemistry, particle
physics, and knot theory. In recent years, the areas of
application of representation theory have grown to include
data analysis, digital image processing, coding theory, and
engineering.